SGER: The Production of Fuel Hydrocarbons by Gliocladium sp.

0802666 (Strobel). This SGER award is to support research to obtain experimental data to confirm that that a recently isolated fungal strain has the capability to convert biomass into hydrocarbons useful as alternative fuels. Data will be obtained by applying GC/MS and PTR-MS techniques in concert with comparative analyses of standard authentic hydrocarbons. In addition, studies will be launched to determine the best conditions for fungal growth and the best biomass substrates that may serve as precursors for hydrocarbon production. Undergraduates will participate in the research. Results will be submitted for publication in the open peer-reviewed technical literature.